Mathematical Sciences: Proximal and Ellipsoid Algorithms in Convex Programming

This project is to investigate the relationship between Shor's ellipsoidal algorithm and the method of partial inverses, developed by the investigator. The latter method extends the range of application of the previous method in solving convex programming problems. These are of fundamental importance in industry, arising in many optimization problems.